Electron Transfer Reactions of Inorganic Free Radicals

Electrical energy, whether in batteries or biological systems, accomplishes work through oxidation-reduction. This reaction occurs by transferring electrons or atoms between molecules at slow or rapid rates depending on several factors. This research is focused on determining how slowly or rapidly the transfer occurs for the simplest molecules that can participate in the reaction. In the previous grant period such molecules as the industrial bleach chlorite and the atmospheric component nitric oxide have been investigated. The results have led to a significant improvement in the understanding of this reaction. The proposed research extends the studies to additional molecules including such common varieties as the oxygen we breathe and hydrogen peroxide and more unusual molecules such as BrCN. The factors influencing the speed of the reaction such as the solvent in which it takes place will also be investigated.